REU Support for Undergraduate Research in Observational Astronomy

Abstract Terzian Cornell University will continue the Observational Astronomy Program established in the Summer of 1989, in which undergraduate students are involved in the research activities of the astronomy group at Cornell University. The undergraduate students will work with members of the Cornell faculty and research staff on a variety of projects, including optical, infrared, and radio/radar astronomy, and other related topics. The students' research at Cornell will provide them the opportunity to participate in astronomical observations at facilities used by Cornell researchers, such as the Palomar Observatory and National Astronomy Centers. The students will be encouraged to participate in the Undergraduate Research Forum at Cornell and to present and discuss their various research projects with other students who are at Cornell in the summer. The Undergraduate Research in Observational Astronomy program will continue to encourage the participation of students who are women or underrepresented groups and whose own institutions do not provide this kind of research experience. Special efforts will be made to facilitate the logistical aspects of the student participants, such as housing and cultural activities.